Understanding of Computer Networks among Science Educators.

This project investigates educators' understanding of concepts involved in applying telecommunications networks to educational purposes. The investigators will develop a prototype series of videotaped information on the NSFNET, Internet and NREN. Telecommunications is a dynamic and procedural subject. To understand the networks, educators need to see demonstrations of network applications and animated sequences that illustrate data/message exchange and transmission across systems. The content will include basic concepts of networking, how networks are used in education, characteristics of NSFNET/Internet, and how to use the NSFNET. An experimental feature of the video series will be a scenario-based viewers assessment. Viewers will be asked to assess their level of understanding after viewing the video; sequences. This information will be used to identify requirements for more extensive educational materials on this subject for educators.